I/UCRC - GOALI Fundamental Research: Use of Stable Isotopes to Trace the Fate of Applied Nitrogen in Forest Plantatins to Evaluate Fertilizer Efficiency and Ecosystem Impacts

This proposal seeks funding for the Center for Advanced Forestry Systems (CAFS) studies conducted by the Virginia Polytechnic Institute and State University site. Funding Requests for Fundamental Research are authorized by an NSF approved solicitation, NSF 10-507. The solicitation invites I/UCRCs to submit proposals for support of industry-defined fundamental research.

The proposal covers the use of fertilizer labeled with stable isotopes to determine the uptake and ecosystem fate of fertilizer nitrogen (N) in three of the most important plantation tree species in the US (loblolly pine, Douglas-fir, and black walnut). The project will compare N dynamics following N fertilization with conventional and enhanced efficiency fertilizers in forest ecosystems. The conventional fertilizer and newly developed enhanced efficiency fertilizers will be labeled with the isotope and evaluated in forest ecosystems in the South, Midwest and Pacific Northwest. The fundamental knowledge gained in this project will improve the efficiency of fertilizer use in forests. This will enable forest managers to use the least amount of fertilizer to optimize growth and minimize potential environmental impacts from excessive fertilizer use.

Results from this effort are likely to benefit industrial members to make them more economically competitive. Waste of fertilizer will also be minimized. The forestry community at large will benefit from the results. The investigators will actively recruit students from underrepresented groups in forestry, including women and minorities. Infrastructure enhancement is mainly in terms of conceptual basis for N fertilization.